Careers in High Performance Systems (CHiPS) Mentoring Workshop

Careers in High Performance Systems (CHiPS) Mentoring Workshop is a mentoring workshop to attract and encourage women and under-represented minority (URM) computer science undergraduate students (specifically those students in their sophomore and junior years) to obtain a Ph.D. in computer science.

The workshop will engage women and under-represented minority undergraduates specifically interested in HPC research. A set of mentoring panels will focus on motivating and preparing students to get a Ph.D. A tutorial session on GPU programming techniques taught by leading academic and industry experts is planned. This panel will be hands-on with the students actually doing coding. Researchers from several areas of HPC will hold panels discussing past research and the current state-of-art in HPC, and present a number of future problems that we, as a society, should be prepared to tackle in the coming decade.